Genetic Optimization of Complex Systems

Although genetic algorithms (GAs) have often provided solutions in situations where there are few applicable techniques, they are not well understood and remain primarily an art rather than a science. This work is directed at deepening theoretical understanding of GA performance with particular emphasis on representational issues. The representational change operators underlying the research are directed at overcoming schemata deceptiveness. Research goals include: 1. The development of a theory schemata analysis which encompasses representational transformations to characterize and analyze the difficulty of GA problems without involving Walsh transforms. 2. The derivation of theoretical and empirical estimates of the density of representations that enable successful genetic search of various classes of functions. 3. The development and demonstration of guidelines for using invertible linear transformations to induce representational changes likely to make difficult GA functional optimization easier while not confounding already easy problems. 4. The development and demonstration of a fast parallel algorithm which exploits alternate problem formulations while simultaneously involving them in an evolutionary process of directed search through a space of representations. This work should lead to the solution of problems which previously did not yield to the genetic paradigm, and should increase understanding of representational issues in search.